Synergy 2004: A Prismatic View of IT Program Reform

Synergy 2004: A Prismatic View of IT Program Reform is a workshop developed by Nashville State Community College in collaboration with the University of Arkansas/ Fort Smith and other ATE Centers to be held in August, 2004. Information technology (IT) has become a foundation for all work. Educational programs in IT have made great strides in teaching new technologies, but methods for structuring the learning environment have not changed. Research in teaching and learning has provided knowledge to educate workers with the "adaptive expertise" needed in the workplace, now and in the future. The workshop, based on the experience of some IT projects, brings together all of the components necessary to help teams of educators and administrators from across the nation develop and implement regional plans for reforming IT education. The evaluation determines the impact and effectiveness of the implementation and guides similar workshops for the future.